Advances in Capstone Education Conference, Fostering Industrial Partnerships; August 3-5, 1994; Provo, Utah

Robert H. Todd 9410494 This project is a workshop on capstone senior engineering design courses. The workshop will bring together engineering educators from all over the country to exchange information on capstone experiences. The ties to engineering design research are a significant part of the program. These capstone design courses are seen as an important link in transferring our country's research results into industrial practice. This workshop will accelerate the improvement of these courses across the country, and in turn improvement of American manufacturing.